Nebraska Conference for Undergraduate Women in Mathematics

The Nebraska Conference for Undergraduate Women in Mathematics is an annual conference designed to encourage undergraduate women math majors to go to graduate school and to help increase their success in
graduate school. The conference brings together women undergraduate math majors from all over the United States. It includes two plenary talks by distinguished women mathematicians as well as panel discussions relating to graduate school and career development. The main part of the program is a series of talks by the undergraduate women about their own research, showcasing the speakers' achievements and encouraging others to emulate their success.

Successful conferences have already been held in 1999 and 2000 at the University of Nebraska-Lincoln (UNL), with about fifty and seventy-five undergraduate women attending, respectively. The UNL Mathematics Department has a strong record of helping talented women to succeed in mathematics, as recognized, for example, by the 1998 Presidential Award for Excellence in Science, Mathematics, and
Engineering Mentoring.